Acquisition and Development of Instrumentation for Picosecond Far-Infrared Experiments

This grant will provide equipment for enlarging the capabilities of the FIREFLY Free Electron Laser at Stanford University. This includes beam handling, beam conditioning, optical detection, data acquisition, and fast optical switching of the infrared beam. This will allow a broad class of experiments in condensed matter and surface physics by the user community.